Qualitative Properties of Stochastic Partial Differential Equations

This proposal deals with three topics in stochastic partial
differential equations (SPDE). The first question deals with uniqueness.
Unless SPDE have unique solutions, they are useless for modeling. Recent work
by the proposer, L. Mytnik, and E. Perkins settled a longstanding question
about uniqueness of SPDE related to the heat equation. Using these newly
developed tools, the proposer will attack uniqueness questions for other types
of equations, and study uniqueness among nonnegative solutions. The second
question deals with traveling waves, which occur widely in physical systems.
Recently the proposer, L. Mytnik, and J. Quastel have solved a problem raised
by Brunet and Derrida, involving the asymptotic speed of traveling waves when
the noise term is small. The proposer will would like to extend this analysis
to other equations, and related particle systems. The third topic involves
stochastic wave equations. The most commonly studied SPDE are variants of the
heat equation, but others such as the stochastic wave equation are receiving
increasing attention. With D. Geba, the proposer will like to study
stochastic wave equations involving null forms. Using some function spaces
introduced by Bourgain, the proposer's goal is to study short-time existence.
The ideas developed should be relevant to other classes of equations.

The field of SPDE is rapidly expanding. As technology moves towards the micro
level, the effect of random noise becomes more and more important. Since the
most important mathematical modeling tools we have are ordinary and partial
differential equations, the study of SPDE is becoming essential in many
applied fields. Even though SPDE is now several decades old, the area has
only recently received widespread attention. There is still a need for
pioneering work to establish a toolbox for the area. This proposal deals with
three types of problems in SPDE. The proposer believes that through the study
of such specific examples is the right way to generate methods and further our
understanding, for both theory and applications. In summary, the proposer
believes that SPDE will play an essential role in future applications of
mathematics. He wishes to develop the theory and help to train graduate
students so that this area can fulfill its potential.